Conference: NSF Student Travel Grant for Pacific Symposium on Biocomputing (PSB): A Bioinformatics Conference

The goal of this proposal is to support student costs for participation and travel to the Pacific Symposium on Biocomputing (PSB) in January, 2027. PSB is an intimate, highly interactive meeting with no parallel sessions and a selective program. This facilitates focused discussion and meaningful engagement. PSB is a relatively small conference with a productive environment for students/trainees to interact closely with senior scientists and get the opportunity to help organize sessions and/or workshops for the meeting. PSB has a track record of discussing new trends of research topics that align well with the major disruptors in the field such as the invention of microarrays, the decrease in cost of DNA sequencing, the increasing developments in machine learning, and the invention of transformer models and large language models.

PSB is an enduring meeting with a single track format that promotes interaction ad shared discussion. Participation by students connects them with leaders in their field and provides valuable experience, both in proposal writing and in developing organizational skills. PSB serves as an important incubator for the intersection of computer science and biology. PSB brings scientists together from around the world and the meeting location and atmosphere promote open discussion and collaboration. PSB is based on participant-driven session development, so PSB hosts cutting edge topics, often for the first time. There is a strong publication record and leadership in identification of emerging research areas.